Functional Analysis of Synaptotagmin Domain Structure

Most communication between neurons in the brain occurs by the regulated secretion of a chemical transmitter at sites of contact, called synapses. Functional studies have shown that the synaptic protein synaptotagmin in lethal. Therefore, many biochemical studies have been conducted to characterize the interactions of synaptotagmin with other synaptic proteins in test tubes. However, before one can understand how synaptotagmin regulates synaptic transmission, the functional significance of these biochemical interactions must be determined in animals. Since synaptic proteins are highly conserved in fruit fly, Drosophila, this project combines the advantages of Drosophila genetic mutations know to disrupt specific protein interactions in test tubes, the investigators will establish the functional importance of the specifically mutated regions of synaptotagmin through a detailed analysis of synaptic structure and function in transgenic Drosophila.

Learning and memory, as well as various neurological disorders are thought to involve changes in the efficacy of transmitter secretion. A thorough understanding of the molecular interactions mediating synaptic transmission is prerequisite for the development of therapies to enhance neural function. This study will disclose the functional importance of specific interactions of synaptotagmin, a protein vital for regulating synaptic transmission.